Acquisition of an X-Ray Diffractometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Mississippi State University acquire an automated X-ray diffractometer system with an additional computer for structural solutions, specifically, a Siemens P4 four -circle instrument and a Silicon Graphics Iris computer. This equipment will enhance research in a number of areas including the following: (1) structural determinants of the energetics of carbon-cobalt bond homolysis in alkyl-cobalamins, (2) reactivity of ditungsten (II,II) carboxylates, (3) studies of the pi-coordination of alkynes and nitriles to multiply bonded ditungsten compounds, (4) structural and stereochemical assignments in the synthesis of triarylmethanes, discorhabdin D, and staurosporine analogs, (5) structural studies of mono- and bi-metallic complexes of 1,2-diethenyl cyclopentadienyl and 1,2-diethenylbenzene ligands, (6) design and synthesis of binuclear manganese complexes for use as oxidation catalysts, and (7) synthesis and properties of 1,2,3,5-benzothiatriazine- 1,1-dioxides,2,3-dihydro-1,2,3,5- benzothiatriazepine 1,1-dioxides, and their tautomers and identification of the structure of homogeneous catalysts. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Syracuse University acquire a modern single crystal X-ray diffraction system. This equipment will enhance research in a number of areas including the following: (1)metal oxide clusters and solid, (2) boron hydride clusters, (3) metal-thiolate chemistry, (4) alkaline,alkaline- earth and lanth anide chemistry, and (5) the development of technetium and rhenium radiopharmaceuticals. The X-ray diffractometer is used to make accurate and precise measurements of the full three dimensional structure of a molecule. The information obtained gives the precise values of all the bond distances and bond angles of a given molecule and it gives accurate information about the spatial arrangement of the molecule relative to the neighboring molecules.